NSF Workshop on Research Challenges in Broadband Access Networks; Chicago, IL

Abstract
ANI-0344881

This award is for a one-and-a-half-day workshop on "Revisiting Broadband Homes: Research challenges in Networks, Broadband Access and Residential Applications." The workshop will bring together researchers with expertise covering a variety of research areas related to broadband access and will be a strong contribution towards better understanding and fostering of the issues affecting fundamental research in residential networking and applications. This workshop will prepare a report that will be available to the community and can help to better articulate the future networking research agenda in broadband access, home networks and applications; it will stimulate far-reaching future research initiatives, collaborations and evolvement of the community.